Conference Travel: Oregon Programming Languages Summer School 2024: Types, Semantics, and Applications at Boston University

This award provides student travel for the 2024 Oregon Programming Languages Summer School (OPLSS) to be held at Boston University. This summer school provides an important and valuable educational opportunity for students to study foundational topics related to programming languages and verification. The focus of this year's school is "Types, Semantics, and Applications". The significance and importance of the summer school include: instruction on how to build and reason about reliability and correctness of computing systems; building international community and cooperation in foundational research areas; and enhancing education of US students, including individuals from underrepresented groups, by exposure to and interaction with leading-edge research and researchers. By supporting US-based students, the school will thus train the next generation of researchers and practitioners in both industry and academia.